SGER: A New Temporal-Spatial Dislocation Source Model

NSF # 0414363

SGER: A NEW TEMPORAL-SPATIAL DISLOCATION SOURCE MODEL

Ray Ruichong Zhang

Division of Engineering, Colorado School of Mines, Golden, CO 80401

ABSTRACT

This study proposes to develop and validate a new concept of temporal-spatial pulse representation for nine couples for seismic moment tensor, which can be used to model various dislocation sources such as seismic source rupture and material crack mechanism. The proposed representation can intrinsically integrate the spatial and temporal features of the sources, which is sound in comparison with the traditional approach with the use of two separate factors, i.e., one from the spatial-based couples and the other from a source time function that is typically assumed and thus not fully inherent to the temporal features of the source. Successful accomplishment of the project will not only improve understanding of temporal-spatial mechanism of the dislocation sources. It will also have broad impacts such as diagnosing crack damage in structural health monitoring, simulating earthquake motion for structural design/retrofit, conducting seismic survey for oil/gas exploration, and assessing influences of explosions in structures.